Reasoning About Real-Time Systems

A formal foundation for real-time computing will be developed. Five directions will be pursued in the hope of increasing the scope of applicability and reducing the cost of current methodologies for the construction and analysis of time-critical systems. Theoretical issues associated with the analog-clock model will be investigated. A satisfactory theory of finite-state computation has already been developed for a digital-clock model; the use of analog clocks would permit proofs of more precise real-time guarantees and would support compositional proof methods. Second, investigations will be undertaken to reduce the cost of model checking by exploiting symbolic relationships between time delays. Success in this endeavor would allow an important class of program verification techniques be applied to a larger class of problems than is presently possible. Further, time-bounded temporal operators will be used to classify timing constraints and to develop temporal proof rules for new classes of real-time properties. Fourth, investigations will commence into the verification of so-called hybrid systems - systems that contain both discrete and continuous processes. Finally, freeze quantification, a byproduct of the study of real-time logics, will be applied in time-independent domains. The ultimate goal of this line of research is to provide the system designer with a wide range of tools that support the production of computing systems with predictable timing characteristics.